Engineering Research Equipment: Automated Testing System

9310669 Boulanger This action is to assist in the purchase by the Department of Civil and Environmental Engineering at the University of California, Davis, of an Automated Testing System and interface hardware, to be dedicated to support research in engineering. It is a computer-automated control system that can immediately extend the capabilities and performance of many civil engineering testing systems. When installed, it will be immediately utilized for research projects in geotechnical earthquake engineering. ***